Conference on Designs, Codes, and Geometries

This award provides partial support for a 4-day conference on designs, codes and geometries. The meeting will take place on March 29-April 1, 2010.
The funds will be used to support five speakers as well as a number of graduate students.
This conference will bring together researchers from designs, codes and geometries in one setting. There have been exciting recent developments in these areas recently. Overall, the organizers plan 10 fifty-minute talks by the invited speakers.

The conference webpage URL is:
http://www.math.udel.edu/~xiang/Conf.html